CAREER: Metal-Ligand Multiple Bonding in Later, First Row Complexes

Dr. Timothy Warren, Department of Chemistry, Georgetown University is supported by the Inorganic, Bioinorganic and Organometallic Chemistry program of the Division of Chemistry, National Science Foundation, for his work under a CAREER Award to establish a fundamental understanding of multiply-bound functional groups in later, first row complexes that participate in catalytic reactions involving cyclopropanation, aziridination and hydrocarbon oxidation. Dr. Warren will prepare carbene, nitrene and oxo complexes of Mn-Cu with a promising class of beta-diketiminate ligands in order to lend insight into these catalytic processes so as to enable the design of more efficient and selective catalysts.

Dr. Warren has integrated research and education by developing a course, "Introduction to the Research Experience", that introduces motivated freshmen students to the research laboratory through a synthetic research project and plans to promote a better understanding of the scientific effort through a pilot outreach program to minority-serving DC high schools.